High Temperature Calorimetry of Refractory Materials

Kleppa 9726699 This grant supports systematic investigations of the thermochemistry of refractory materials. These studies are based on applications of a unique high-temperature reaction calorimeter which is operated continuously at temperatures up to about 1500K. This calorimeter was developed with special support from the NSF in 1987-88. During the coming three years this investigation will be extended to the compounds formed by the mildly radioactive actinide elements thorium and uranium with the late transition metals and the noble metals. The investigations plan a special modification of the unique high-temperature reaction calorimeter which will allow measurements of heats of mixing the heats of solution in binary liquid alloys at temperatures up to about 1500K without introducing one of the two reactants from room temperature. The goal is to better understand the basis for how thermodynamic properties of a binary system depends on the character of its two constituents. %%% There have been few calorimetric studies of the thermodynamic properties of uranium and thorium alloys based on binaries with the transition metals. This work adds to the enthalpy data base for binary compounds of these elements. ***